Instrumentation for the Physical Chemistry Laboratory

The recent acquisition of a Fourier Transform Infrared Spectrophotometer is enabling the Chemistry Department at Mount Holyoke College to significantly expand the scope and sophistication of the laboratory curriculum in physical chemistry, in a methods of measurement course, in micro-scale organic chemistry and in independent research.